U.S.-Finland Cooperative Research: Sodium and Sulfur Volatilization, Capture, and Aerosol Processes in Combustionand Gasification

This award supports Professor W. J. Frederick and members of his research group at Oregon State University to collaborate in chemical engineering research with two groups of engineers from Finland. The objectives of their cooperative research are to provide basic experimental data and fundamental models for the processes involved in sodium aerosol formation and deposition and also sulfur volatilization and capture in the combustion and gasification of high sodium and/or sulfur content fuels. Their research plan links the complementary expertise and experimental capabilities of three research groups: 1) Dr. Frederick's group in the Chemical Engineering Department of Oregon State University, with expertise in rate processes and combustion of high sulfur/sodium fuels; 2) the Combustion Chemistry Group led by Dr. M. M. Hupa at the Abo Academy University, in Turku, Finland, which offers expertise in combustion chemistry; and 3) the Aerosol Technology Group of the Technical Research Center of Finland, in Espoo, led by E. I. Kauppinen, which brings particularly strong theoretical and experimental capabilities in aerosol science. The high sodium and sulfur content fuels being studied in this project are of industrial importance to both the U.S. and Finland. This is reflected in the development of fluidized bed and pressurized gasification processes for coal and spent pulping liquors in both countries. The results of the proposed research are expected to be useful in the design of new processes such as pressurized gasification of high-sulfur coals or spent pulping liquors as well as in the optimization of existing technologies.